Comprehensive Seismological Investigation of the Tectonic Deformation of the Gorda Plate

This two-year study will conduct a comprehensive investigation of the Gorda plate seismicity since 1964, focusing on the larger events that contribute significantly to the seismic strain rate. Source mechanisms, depths, seismic movement and other details of the rupture events will be determined using waveform inversion techniques. Relocation of all events with mb >=5 will be used to produce precise locations of the intraplate events that can be compared to geological observations, such as GLORIA side-scan imagery.